Studies in Quantum Chaology

The notion of chaos and its accompanying consequences have had a profound impact on our view of a number of phenomena in the macroscopic or classical world. However, the extension of these ideas to the microscopic quantum world largely remains a mystery, especially as a correspondence between classical and quantum phenomena is expected to exist. What is established is that exclusively quantum effects are seen in classically chaotic systems, behavior collectively designated as quantum chaology. Two broad classes of `local` and `global` distinguish effects which are, respectively, sensitive and insensitive to details of the classical description. In the proposed work, these issues are considered in the context of a recent atom optics realization of a simple dynamical paradigm. Building on earlier work with these experiments, one objective is to study `local` mechanisms in this experimental context with particular emphasis on contrasting quantum coherence in systems with and without classical chaos. The possibility of a direct assessment makes this a novel realization. This would then provide a well-characterized system to assess the interplay of local and global effects which has broader significance to generic aspects in dynamics and non- equilibrium phenomena.